Undergraduate Research in Environmental Engineering Focused on Protection and Treatment of Water Supplies

9988062
Silverstein

Each summer, eight undergraduate students interested in Environmental Engineering